Surface Energy Balance on West Antarctica and the Ross Ice Shelf

Atmospheric warming has been a major factor in the loss of ice shelves on the Antarctic Peninsula. In West Antarctica, oceanic warming is presently regarded as the largest source of stress on both the ice-shelves and at the grounding lines of the ice sheets. The loss of ice shelf buttressing and grounding line retreat may have already induced irreversible loss of Thwaites Glacier. To advance predictive models more data is needed regarding both water-induced fracturing on an ice shelf and marine ice cliff instability near the grounding line. This project will help advance understanding of atmospheric circulation and solar radiation over West Antarctica and the Ross Ice Shelf that lead to surface melting. In support of this project, and incorporating Antarctic science from this work, UCSD educators will sponsor a workshop series for exemplary middle and/or high school science teachers designed to address this need. Teacher participants will be carefully selected for their demonstrated leadership skills and will eventually become part of an cadre of "master" science teachers who will serve as local leaders in disseminating strategies and tools for addressing the NGSS (Ca Next Gen. of Sci. Eng. Stds.) to teachers throughout the county.

For the summer field seasons requested, UCSD scientists will deploy a suite instruments to measure downwelling and net shortwave and longwave fluxes, sensible and latent heat fluxes, and near-surface meteorology. This suite of instruments will be self-reliant with power requirements and will be supportable in the field with a single Twin Otter aircraft. The investigators plan to deploy this suite as a remote ice camp with a field party of 2-3 personnel, making measurements for at up to one month during each of the sampled summer field seasons. These measurements will be analyzed and interpreted to determine mesoscale conditions that govern surface melt in West Antarctica, in the context of improving coupled climate model parameterizations.